ATI: Searching for Low Frequency Radio Transients

0504677--Ellingson/Va Tech

The award will cover the construction and initial operation of a low-frequency radio array operating in the band 29 - 47 MHz at the Pisgah Astronomical Research Institute that will be used to monitor virtually the entire sky at all times in a search for low-frequency radio transient phenomena. Such transients, which have yet to be observed, could arise from a variety of high-energy astrophysical phenomena including primordial black holes, gamma ray bursts, supernovae, and compact object mergers. Included in the project are advanced software development efforts to mine the large quantity of anticipated data for transient signatures as well as the development of techniques to deal with anticipated radio frequency interference in this band.